Analytic Number Theory and Multiple Basic Hypergeometric Series

The investigator will continue his research on analytic number
theory, algebraic combinatorics, and the theory and application of
multiple basic hypergeometric series. The investigator recently
derived many infinite families of explicit exact formulas involving
either squares or triangular numbers, two of which generalize
Jacobi's (1829) 4 and 8 squares identities to 4n^2 or 4n(n+1)
squares, respectively, without using cusp forms. He similarly
generalized to infinite families all of Jacobi's explicitly stated
degree 2, 4, 6, 8 Lambert series expansions of classical theta
functions. These results, depending on new expansions for powers of
various products of classical theta functions, arise in the setting of
Jacobi elliptic functions, continued fractions, Hankel or Turanian
determinants, Lie algebras, and Schur functions. The investigator
first plans to finish his derivation of the infinite families of explicit
exact sums of squares identities (excluding those above) for n^2 or
n(n+1) squares, respectively, that he has already shown to exist.
These will include explicit identities for an odd number of squares.
Next, he plans to prove additional Kac--Wakimoto conjectures for
triangular numbers. In the area of algebraic combinatorics, the
investigator will develop the combinatorial and number theoretic
implications of his new formulas for Ramanujan's tau function that
are directly related to the Leech lattice.

The above project utilizes explicit combinatorial and analytic
methods to study the problem of representing an integer as a sum of
squares of integers. This problem is one of the oldest and most
significant in mathematics. It goes back at least 2000 years to
Diophantus, and continues more recently with the works of Fermat,
Euler, Lagrange, Jacobi, Glaisher, Ramanujan, Hardy, Mordell,
Andrews, and others. Jacobi's elliptic function approach dates from
his epic ``Fundamenta Nova'' of 1829. He found elegant simple
formulas for counting the number of ways that any fixed positive
integer n can be written as a sum of 2, 4, 6, or 8 squares.
Applications of modular forms to sums of squares really started in
1917 with Mordell. This approach provides abstract formulas for
any given number of squares as the Fourier coefficients of modular
forms. In 1965 Rankin proved that any one of these formulas, for
more than 8 squares, would be highly non-trivial to compute
explicitly. Since 1829, explicit exact non-trivial formulas have
only been found for up to 32 squares, with an even number of
squares much easier than an odd number. The investigator used his
combinatorial/elliptic function methods to derive infinite families of
expansions of powers of classical theta functions, and the
corresponding non-trivial explicit sums of squares formulas. (See
http://xxx.lanl.gov/abs/math.NT/0008068). This is the first time
that infinite families of non-trivial exact explicit formulas for
sums of squares have been found. All of this work gives a new elegant
extension of the classical formulas of Jacobi.